Enhanced Industry Internships for Engineering Students

This project enhances summer internships in industry for undergraduate engineering students. The enhancement is formal instruction in non-technical areas of engineering practice where graduating seniors often possess inadequate knowledge and proficiency. The areas are effective communication, teamwork and leadership, and changing professional practice. The project involves industrial firms that hire engineering students for the summer as partners in the development and delivery of two courses. The courses will be taught at the industry site by engineers from the company. This gives the content much credibility in the eyes of the students and moves this content from the overcrowded curriculum to the workplace. Effective collaboration between industry and the university is facilitated by faculty visits to each of the worksites. The grantee and the cooperating companies provide support for this project that approximately match NSF funds.